Materials Research Science and Engineering Center on Nanostructured Materials

9632526 Chien The Materials Research Science and Engineering Center (MRSEC) at Johns Hopkins University supports research on nanostructured materials, with a focus on the development of novel low dimensional nanostructures with unique physical properties and diverse technological applications. The research combines experimental and theoretical studies to develop an understanding of the interrelationship between the properties of nanostructures and the degrees of freedom available for their design and fabrication. Materials to be studied include multilayers of functionally dissimilar materials, e.g. metals and insulators, arrays of nanowires, and ultrafine granular materials. The MRSEC also supports shared experimental facilities for materials research, exploratory research through seed funding, and collaborations with industry and other academic institutions. The Center's educational outreach program includes summer internships for talented high school students in collaboration with the Johns Hopkins Institute for the Advancement of Youth. The Center supports 7 senior investigators, 3 post-doctoral research associates, 5 graduate students, 1 administrative assistant, and 4 undergraduate students. The MRSEC is directed by Professor C-L. Chien. %%% The Materials Research Science and Engineering Center (MRSEC) at Johns Hopkins University supports interdisciplinary research on materials whose structure is modulated on a nanometer scale. As a result of the microstructure, these materials display unique physical properties which have potential technological applications. The research combines experimental and theoretical studies to develop an understanding of the interrelationship between the properties of nanostructures and the degrees of freedom available for their design and fabrication. Materials to be studied include multilayers of functionally dissimilar materials, e.g. metals and insulators, arrays of nanowires, and ultrafine granular materials. The MR SEC also supports shared experimental facilities for materials research, exploratory research through seed funding, and collaborations with industry and other academic institutions. The Center's educational outreach program includes summer internships for talented high school students in collaboration with the Johns Hopkins Institute for the Advancement of Youth. The Center supports 7 senior investigators, 3 post-doctoral research associates, 5 graduate students, 1 administrative assistant, and 4 undergraduate students. The MRSEC is directed by Professor C-L. Chien. ***